Mathematical Sciences: Model Theory and Permutation Groups

8902139 Thomas Thomas intends to examine what kinds of stable omega-categorical pseudoplanes can be constructed via variations on Hrushovski's method. He also plans to study omega-stable subsets and regular types in stable omega-categorical structures. He will continue his work on extremal problems in infinite permutation groups.